Acquisition of a Gas Source Stable Isotope Mass Spectrometer and Automated Preparation Systems

9817348
Kaufman
This grant provides partial support for the purchase of a gas source stable isotope mass spectrometer with automated preparation systems for the Isotope Geochemistry Laboratory at the University of Maryland. The Principle Investigators include: A.Jay Kaufman, a recent addition to the Department of Geology faculty after seven years as a post-doctoral fellow and research scientist in stable isotope geochemistry at Harvard University; Karen Prestegaard, a physical and chemical hydrologist in the Department of Geology; and Margaret Palmer, an ecologist in the Department of Zoology. In addition, Christina Gallup, a geochronologist and coral researcher in the Department of Geology, and Russ Dickerson, an atmospheric chemist in the Department of Meteorology will use the new instrumentation in their studies.

The establishment of a gas source stable isotope mass spectrometer at the University of Maryland represents the first academic facility of its kind in the Washington D.C. area. As such, this facility will allow additional collaborative studies by local researchers, in particular at George Washington University and the Smithsonian Institution. The gas source instrument will be housed in a newly-renovated laboratory adjacent to the existing stable isotope preparation laboratory in the Chemistry building. This facility, funded by the university and the Earth Sciences Instrumentation and Facilities Program (EAR/IF), will support research initiatives in chemical stratigraphy, carbonate geochemistry, global climatic and environmental change, coral research, hydrology, atmospheric and environmental sciences.
***